Multiscale Analysis in Dislocation Dynamics

Multiscale Analysis in Dislocation Dynamics

Abstract

Widely used 3D dislocation dynamics models do not properly include inertia effects, which is the central part of the proposed research. Since DD is formulated on the basis of the balance of configurational forces on any segment of the dislocation, it is proposed here to determine the dynamic Peach-Koehler force for a generally moving dislocation. This requires the proper definition of the dynamic Peach-Koehler force through path-independent integrals and singular asymptotic analysis. The core distribution function as the dislocation moves will be determined by matching configurational forces computed at the continuum scale to those at the discrete lattice, thus bridging the two scales. Such bridging of scales in which the dislocation core radius depends on the dislocation position within the lattice has already been accomplished in static case by the proposers. The truly dynamic self-force for a generally moving loop can then be used in the available DD codes.